Subdivision Rules and 3-Manifold Topology

DMS-0203902
William J. Floyd

This project is an attempt to resolve the hyperbolic case of
Thurston's Geometrization Conjecture. Specifically, the goal is to
resolve the conjecture that a Gromov-hyperbolic group with space at
infinity a 2-sphere has a cocompact, properly discontinuous action on
hyperbolic 3-space. The investigator and his collaborators are
approaching the conjecture from the point of view of proving
conformality of certain recursive sequences of tilings on the space
at infinity of a Gromov-hyperbolic group. Previous work has indicated
that conformality of a recursive sequence of tilings might follow
from finding an invariant conformal structure for a branched surface
associated to the recursive structure. This possibility arose from a
connection between the recursive structures and rational maps, and
Thurston's classification theorem for critically finite branched maps
of the 2-sphere gives insight into how the theory might develop.
Multiple approaches are planned for finding an invariant conformal
structure. Further work is also planned on twisted face-pairing
3-manifolds. Much of the basic theory of twisted face pairings has
been completed, but some questions remain which are central to
further developments of the theory. Significant progress here could
help the main part of the project, since twisted face pairings are a
good source of test examples for the conjecture stated above.

The immediate focus of this proposal is on sequences of planar
tilings. Given an initial tiling and a combinatorial rule for
subdivision, one recursively obtains a sequence of subdivisions of
the initial tiling. The goal is to understand when these combinatorial
subdivisions can be realized geometrically so that the tiles stay
"almost round" at all stages of the sequence. This problem is
interesting in its own right, but it is being studied here as part of
a deeper problem. It is a key feature of a program of the
investigator and his collaborators to resolve the hyperbolic case of
William P. Thurston's Geometrization Conjecture. The Geometrization
Conjecture, which is the central outstanding problem in
low-dimensional topology (it includes the Poincare conjecture as a
special case), states that every compact 3-manifold can be naturally
subdivided into geometric pieces. The techniques being developed for
approaching this have potential applications in other disciplines.